Advances in Optical Diffusive Wave Imaging

ABSTRACT
EEC-9812924
Dimarzio/Northeastern

This is an Exploratory Research Project to augment the Industry/University Cooperative Research Center
for Electromagnetics Research

The research objective is to advance the basic knowledge in maximizing the potential for non-invasive optical imaging of the human body. It is anticipated that the project will result in improved in improved penetration, resolution, accuracy and diagnostic capability of diffusive-wave imaging to that it will become a safe and effective tool of medical diagnosis. Specific objectives include (1) understanding the behavior of diffusive waves ins complicated tissues where the diffusion approximation is not valid, (2) inventing novel advanced imaging systems for improving spatial resolution, and (3) developing new algorithms to extract information from available data.